Retrospective Analysis of Growth Rate and Recruitment for Sable-Fish, Anoplopoma Fimbria, from the Gulf of Alaska and California Current System

Sablefishes are one of the most valuable ground fish species in the Northeast Pacific. The primary objectives of this study are: 1) to establish a time-series of juvenile sablefish growth beginning in the 1940s, using otoliths collected since the 1980s; 2) to evaluate the correspondence between juvenile growth and recruitment to adult stocks of sablefishes, and the relation of these factors to year-class strength; 3) to compare and contrast growth rates and recruitment indices; and 4) to develop preliminary models that relate interannual and interdecadal responses in growth and recruitment to past environmental conditions